Mathematical Sciences: Differential Cobordism and Related Topics

Stong will continue his study of applications of elliptic curves and elliptic function theory in algebraic topology, a joint project with Peter S. Landweber (Rutgers University). A new family of periodic cohomology theories has been shown to exist, whose coefficient rings are rings of modular functions for the well-known theta group. The main problem is to determine the intrinsic geometric nature of these cohomology theories; this appears to be very difficult, and at present a number of leads that appear promising are being explored. A prominent role in this study is played by the formal groups of Jacobi quartics and the Legendre polynomials which enter as coefficients of the invariant differential. Theoretical physics will probably be the first area outside the mathematical sciences to benefit from the study of these rich structures.